FLAIR: Flexible Learning with an Artificial Intelligence Repository

This is a collaborative proposal between Temple University, Villanova University, Drexel University and Millersville University to design and prototype an AI repository consisting of a variety of educational materials and computing environments. The AI repository, to be maintained and supported by Temple University, will be used by students for software projects and for independent personal study in AI laboratories associated with computer science courses.